Interdisciplinary Control Systems Laboratory

The objective of this project is to consolidate the present departmentally diffused programs in control systems into a common program emphasizing basic control theory; modeling, simulation and optimization issues; computer-aided control system design methodology; laboratory techniques; and computer- aided visualization. In order to accomplish this objective a number of laboratory experimental stations are developed which directly support the revised classroom/workstation course materials; characterize typical computer-in-the-loop control systems design problems a variety of disciplines; can be expanded and integrated with the full spectrum of control systems design and analysis tools; introduce the student to modern measurement and actuation techniques; and are readily modified to respond to the needs and development of future controls technology.